Power Train Control and Diagnostic Robust Design Methodologies

The objectives of this GOALI Faculty in Industry project are to enhance and share understanding, between academia and industry, of respective technical goals and constraints related to vehicle powertrain systems, through collaborative vehicular powertrain research and technology transfer. The technical focus of the project is to develop improved control and diagnostic aspects of vehicle powertrain systems, and maintain system robustness within a highly cost-sensitive environment. Another important objective of this project is to gain an intimate knowledge of powertrain research activities at several major European vehicle research centers, and to better understand the industry needs from the European perspective. The bulk of the work will be carried out by Professor John J. Moskwa at the Ford Research and Engineering Center in Laindon, Essex, England. Funds are also provided to meet travel expenses to other academic and industrial research groups within Europe. There will also be some research collaboration with the University of Cambridge.